3-D Electron Image Processing for Protein Crystals

The objectives of this award are to develop a software system for complete three-dimensional structural determination of biological macromolecules by electron microscopy and image processing at atomic reolution. This will include i) creation of a rational and complete three-dimensinal database for both electron images and diffraction pattersn, ii) the coordiantion of a large collection of existing programs, iii) development of new algorithms for image processing, reconstruction and visualzation and iv) dissemination by ftp, gopher or other mechanisms' and training via workshops held a national meetings and Gordon conferences and a well-maintained manual.